Topics in the analysis of finite elements

Three distinct projects that study the behavior of finite element methods (FEM) will be considered. The first project is studying the pollution effects of immersed boundaries in the immersed boundary finite element method. A sharp error analysis will be given that measures how far one has to be from the immersed boundary to obtain optimal convergence. The second project will involve adaptive Discontinuous Galerkin (DG) methods. Contraction properties of weakly penalized DG methods will be proved. The final project is max-norm stability analysis of inf-sup stable finite element methods for the Stokes problem. A Fortin projection that is exponentially decaying will be constructed for the lowest-order Taylor-Hood element in three dimensions. Exponentially decaying projections will be an important tool to prove max-norm stability estimates.

FEM are widely used to simulate a variety of problems in engineering and science. Users of these methods rely on theoretical results that give them some guarantee of their reliability. The P.I. will use mathematical analysis to describe the behavior of FEM for three important FE methods. In particular, the P.I. will mathematically study the behavior of the immeresed boundary FEM which is a method especially suited for fluid-solid interactions. For example, these methods have been used to simulate blood flow and animal locomotion, to name a few. The results of this investigation will give users theoretical guidance on where to put more computational effort which in turn will make their simulations more accurate for imporant applications.